Brain Dopamine and Instrumental Response Allocation

Salamone 9511247 While changes in neurochemicals typically have effects on behavior, they may have a very large effect or a minor effect depending upon behavioral context. Dopamine is one such neurochemical. It is secreted in the forebrain and is related to an animal's tendency to produce a response in order to receive a reward. In this project, Dr. Salamone will examine the significance of brain dopamine to behavioral performance in situations where the context of performance (costs versus benefits) is manipulated. These studies will provide new information to distinguish dopamine effects on neural systems controlling motor performance as distinct from those that influence motivation. ***